Mathematical Sciences: Some Problems in Algebraic and Geometric Topology

The investigator plans to study problems in algebraic and geometric topology and algebraic K-theory. These include studying K-theory parameterized by metric spaces, studying infinite groups acting on a sphere cross euclidean space, studying the L-groups of certain infinite groups, and studying controlled-type surgery theories. Topology arose originally as an approach to the study of differential equations. Over the intervening century it has evolved prodigiously, often seeming to have a life entirely its own and independent of its source. Increasingly, however, it has begun to repay its debt. The point is that it is often more important to know of the solution of an equation whether it is a closed loop or whether it is knotted, for example, than to know precisely and numerically what are the coordinates of all its points. Furthermore, although the former qualitative information is implicitly contained in the latter complete description, it is not at all obvious how to extract it. The sophisticated machinery that has been developed by topologists, such as the surgery groups and algebraic K-theory which are under investigation in this project, has now been developed to a degree that often permits these natural problems to be handled in a natural way.